Energetic Phase Field Methods and Modeling in Biological Microstructures

Wang
DMS-0807915

During recent years, the energetic phase field approach has
emerged as a successful modeling and simulation method with many
advantages in studying microstructure evolutions. The idea of
phase field methods is to introduce a set of phase field
variables to implicitly track the moving surfaces of
microstructures, which can be very complex and nonlinear. In
this project, the investigator and his collaborators apply phase
field methods to study biological microstructures, especially
cell membranes. The project is mainly concerned with further
analysis on phase field methods, and the broadening of
applications in studying the evolution of biological
microstructures for which phase field methods and related
concepts can be used as a basis for more convenient or efficient
treatments. The project includes modeling, numerical methods,
and theoretical analysis.

The investigator studies some theoretic and algorithmic
problems in phase field methods that still remain unsolved or
partly unsolved today, such as asymptotic behavior of phase field
variables (which is related to the De Giorgi conjecture), the
consistency of the fluid coupled phase field model to the sharp
interface model, topological information retrieval formulations,
and convergence and acceleration of some popular algorithms. He
also applies the theoretical results to the modeling and
simulation of some complex microstructure systems, especially
cellular adhesion and rolling in a shear flow, which can be used
in the study of blood flows. Cell motility is another complex
biological phenomenon that can be simulated using phase field
models. Also considered is the simulation of acto-myosin driven
cell oscillations, which can be applied to study cell division
and migration, two of the most important functions of living
cells. Besides simulating some observed phenomenon, phase field
models can also be applied to predict details of some structures
that are not yet fully known, such as highly folded membranes.